2001 Gordon Conference on Nuclear Chemistry, June 17-22,2001

0110577
Riley
The main objective of the Gordon Research Conference on Nuclear
Chemistry is to provide the international community of nuclear
scientists with a unique forum in which the newest developments at the
forefront of this science can be presented and subjected to detailed and
extended discussions and criticism. The purpose of the conference is to
encourage communication and the discussions to be conducted in an
atmosphere conducive to open interactions between the scientists,
provoking new and even speculative ideas for future research. To
accomplish these goals requires the participation in all of the
conference activities of a significant number of leaders in the field.
However, a science as rapidly developing as nuclear chemistry invites
and needs cooperative efforts on all levels, including efforts both
national and worldwide in scope. The participation of younger
scientists is essential to address the future manpower needs of this
rapidly changing field. Therefore, bright and promising postdoctoral
researchers and graduate students have been specially selected for
participation in this conference and encouraged to present their ideas.
Their participation in this conference provides them with unique and
extensive access to the leaders in their field, exposes them to new
research opportunities and techniques and helps prepare them for the
leadership roles they will assume in the future. This award will
facilitate participation from these junior scientists.